Development of Atmospheric Chemistry Instrumentation

9417061 Stedman This four part research project is designed to improve the ability to measure the flux of atmospheric species between the ground and the atmosphere. Detection systems developed, in part, at the University of Denver, will be further developed and investigated in terms of their ability to determine these fluxes. Part 1. Long-path UV (LPUV) spectroscopy will be coupled with long-path IR (LPIR) spectroscopy and used to determine the fluxes of various species. Two new system approaches will be attempted. Both make use of the fact that modern corner-cube based FTIR systems have two input ports for light, and the system responds intrinsically to the intensity difference between the two. The gradient method for flux measurement, which depends on the measurement of small differences for its sensitivity, can make use of this ability to directly measure species gradients. Two light beams from the same source will be designed to traverse the path at two different altitudes to be combined in the FTIR for the difference measurement. Another configuration of the same system will send the two beams around two sides of a suspected emission source. This should achieve automatic subtraction of all but emissions from the suspect source. The FTIR is available from previous support, however, the telescopes, mirrors, software, experimental protocols, etc. will be developed under this program. The long-term goal is more reliable measurements of emission and deposition of atmospheric species. Part 2. An available fast-response, in-situ, total sulfur monitor will be optimized for response speed and sensitivity. It will be used for flux studies by means of the eddy-correlation technique. Some of the flux studies will be carried out in collaboration with the National Center for Atmospheric Research (NCAR) Atmosphere Surface Turbulence Exchange Research (ASTER) facility. Part 3. An atmospheric pressure, flow system, free radical dete ctor has been developed and shown to respond to concentrations of hydroperoxyl (HO2) and organic peroxyl (RO2) radicals. This apparatus, named PERCA (PEroxy Radical detector using Chemical Amplification) has also been shown to respond to a number of hydrocarbon and oxygenated hydrocarbon peroxy radicals up to C8. The research to be performed under this portion of the program is to study interferences and to develop a portable calibration system for preparing standards containing known concentrations of free radicals. Part 4. The potential for atmospheric chlorine photochemistry in oceanic regions has become the subject of an interesting scientific controversy. These researchers will develop a high- sensitivity system that will detect atomic chlorine, thus potentially detecting traces of halogen amines, which may be formed if chlorine photochemistry is taking place.